Extension of NSFNET Services to Phillips Laboratory and Sandia National Laboratories Albuquerque, New Mexico

9316015 Aupperle This proposal requests $586,000 for twelve months to establish a node ("CNSS") on the ANSNET Backbone at Albuquerque, with tail circuits to end-nodes ("ENSS") at Phillips and SNLA. Funding for this effort is being provided entirely by the Air Force and the Department of Energy. Since the traffic to be carried over this segment of the ANSNET Backbone is entirely for the purposes of research and education consistent with the NSFNET Backbone Services Acceptable Use Policy, full connectivity will be established with the rest of the NSFNET; the node in Albuquerque becomes therefore essentially another connection for the NSFNET Backbone Service. IN addition to supporting the open networking needs of its sponsors (USAF and DoE), this project is intended to be used by New Mexico's higher education, pre-college, and informal education communities to support the general goals of the National Research and Education Network (NREN) program; it is also consistent with Presidential and Congressional intent for the National Information Infrastructure.